Travel Grants to the XXI International Congress of History of Science

This award will allow Science and Technology Studies scholars from the United States to attend the XXI International Congress of History of Science, which will be held in Mexico City, 8-14 July, 2001. This Congress, under the auspices of the International Union of History and Philosophy of Science, has as its 2001 theme "Science and Cultural Diversity." The Congress is an important quadrennial conference that brings together scholars in science and technology studies from around the world.